Ingot Processing as an Alternative to Powder Processing for Achieving Superplasticity in Structural Ceramics

9526836 Wolfenstine An exploratory research program is proposed to investigate the possibility of using the unprecedented method of ingot processing (thermomechanical working of the as-cast material) as an alternative to the more conventional powder processing route for achieving fine-structure superplasticity in two-phase structural ceramics which will eliminate the problems generally occur in the conventional powder processing route; these include (I) the consolidated powders do not always attain full density and (ii) during processing the powders impurities and unwanted phases are unavoidable. Magnesium alumnate and magnesium oxide system will be attempts to prepare superplastic two phase structural ceramics. Research, if successful, will demonstrate the first time such superplastic concepts in ceramics. %%% The goal of this research is to explore the unprecedented method of ingot processing for achieving fine structure superplasticity in two phase structural ceramics.